Novel Optically Nonlinear and Luminescent Conjugated Polymers

This composite project involves the collaboration of three departments in two separate universities. Novel conducting polymers that will be suitable for the optoelectronics industry will be studied, and will include the synthesis of new organosilicon polymers based on the incorporation of heteroelements into the carbon backbone structure of the polymers and their characterization by a variety of different techniques. Processing methods that will yield homogeneous thin films, coatings, and fibers of these polymers, that will be suitable for optical devices such as optical modulators and switches or electroluminescing (EL) devices will also be explored. Some of these new polymers will attract considerable scientific interest in the physics and chemistry communities by providing stable processible degenerate ground state polymers supporting charged solitons or EL systems, for which nongeminate decay processes will be studied in detail. This project is being supported jointly by the Division of Materials Research, and the Division of Electrical and Communications Systems.